Use of Microbial Assays to Distinguish Between Heavy Metal and Organic Chemical Toxicity

This is a an award to provide renewal support for research that was initiated under NSF Grant No. 88-13714, objectives of which were to determine the conditions under which the inhibition of metabolic processes in selected microorganisms for production of enzymes could be used to predict the effect of toxic substances on microorganisms organisms used in submerged culture, biological wastewater treatment processes. Results included the application of findings to development of a short-term, bioassay procedure for determination of heavy metal toxicity in environmental media. Objectives of this project include efforts to increase the sensitivity of the biosensing procedure by altering the permeability of the test-organism's cell wall. Work will include efforts to simplify the conduct of the procedure that would enhance its potential for routine use in improving operation of biowastewater treatment processes, investigate its potential for use in bioassays to distinguish between heavy metal and organic toxicants, and in evaluation of heavy-metal toxicity associated with contaminants associated with solid substances such as sediments, soils, sludges and ash from incineration processes. Results of this research are expected to be utilized in the engineering design of biological treatment processes that are subjected to being impacted by toxicants, in assessing the impacts of waste discharges to the environment, in determining the impacts of toxicants on potential water reuse for agricultural and industrial purposes, and in evaluating results of bio-, chemical-, and physical- procedures that are applied to remediation of hazardous waste sites.